Collaborative Research: Structural and Geochronologic Study of 1.4 Ga Deformation and Magmatism in Southern Wyoming: Implications for the Regional Tectonic Setting of ...........

0001144 Chamberlain, Kevin R.
0001241 Duebendorfer, Ernest M.

A mesoproterozoic magmatic belt extends from California to Labrador, yet its tectonic significance is controversial, largely because of the absence of regionally extensive structures of pervasive fabrics that can be used to deduce tectonic setting. This project addresses this problem by an integrated program of mapping, structural analysis and U-Pb geochronology on synkinematic minerals from 1.4 Ga shear zones in Southern Wyoming. Results are expected to help resolve various compressional or extensional models for this tectonic episode.